Percolation Enhanced Coalescence

Research Summary: This proposal deals with the general question of emulsion stability, which in the past has been dealt with using the same theoretical considerations that are applied to dispersions of colloidal solids in a liquid. There is, however, a fundamental difference when the dispersed phase is an immiscible liquid rather than a solid. Molecules of the liquid may be incorporated into the interfacial phase forming rigid liquid crystalline structures which then stabilize the emulsion. An immiscible liquid may also dissolve into micelles which tend to form in the continuous phase when surfactant is present. The presence of these swollen micelles in the continous phase can enhance the coalescence rate. The hypothesis in this work is that one of these two phenomena is, in general, overriding; and the classical theory which is so successful in dealing with the stability of colloidal suspensions is not relevant when dealing with emulsion stability. This research tests this hypothesis. Novelty: The research is innovative even though the techniques for evaluating emulsion stability and droplet coalescence rates are not. The novelty arises because the chemical system used to conduct the study is carefully characterized relative to its tendency to form liquid crystalline or microemulsion phases at equilibrium. These crucial measurements are concerned with the behavior of the equilibrium systems. If successful, a correlation between certain equilibrium properties and emulsion stability will be demonstrated, thereby providing an entirely new and radical approach in structuring surfactant molecules. Technical Impact: The need to create stable emulsions is prevalent in many applications of surfactants. Foods, paints, agricultural insecticides, and many other products are stable blends using new surfactant chemicals to obtain the desired stability. On the other hand, sometimes the breaking of emulsions is required. An entire industry has been created to deal with this problem, especially to service the oil industry. This research could profoundly influence the methodology used for the selection of chemicals for emulsion destabilization, as well as the types of chemicals used.